A Classroom Microcomputer Laboratory for Calculus and Introductory Programming

A laboratory in a classroom setting is used for teaching Calculus I and Introductory Programming. The classroom setting facilitates demonstrations and promotes student interactions with the computer during lectures. Computer algebra system software and other programs with calculus/graphics capabilities used in the math classes give the students a geometric demonstration of the topics being discussed. Assignments made to students provide them with extensive "hands-on" experience. Some of this is part of the lecture period and other experience is during formal and informal laboratory periods. The grantee provides funds for this project that are an equal match for the NSF award.